III: Theoretical and Simulation Studies of Stimulated Radiation During Ionospheric Heating

The PI will contribute to quantitative understanding of ionospheric stimulated electromagnetic emission (SEE) through theoretical and numerical simulation models. SEE is a powerful diagnostic tool for nonlinear processes produced during ionospheric modification experiments, and may also be used for general nonlinear processes in plasmas. This investigation utilizes magnetized, kinetic numerical models not used in past investigations, but essential for further progress in studying SEE. Specifically, the PI will: (1) provide a more comprehensive study of three-wave parametric decay processes proposed to produce downshifted sidebands in the SEE spectrum; (2) study four-wave decay processes proposed to produce prominent upshifted sideband features in the SEE spectrum; and (3) study the broadband continuum feature in the SEE spectrum, proposed to result from strongly turbulent interactions in the background plasmas.